Synthesis of Topologically and Stereochemically Well-DefinedPolymers

This project aims at the synthesis of structurally stereochemically and topologically well-characterized vinyl polymers using principally anionic polymerization. The synthesis of stereoregular polymers involves the use of Lewis acid type and other additives such as aluminum alkyls, lithium alkoxides and cuprates that show promise in the stereoregulation process. They will also explore the polymerization of sterically hindered monomers with the aim of a better understanding of the role of monomer conformation and carbanion geometry in the stereoregulation process. They also anticipate that polymers of this type will exhibit interesting conformational properties including helicity. The second part of this research deals with the synthesis of macrocyclic homo- and block copolymers including well-characterized macrocyclic polystyrene using capping methods designed to minimize side reactions occurring at extremely low carbanion concentrations. These macrocyclic polymers will be characterized by several methods including: 1H and 13C Nuclear Magnetic Resonance (NMR) and the corresponding T1 relaxation measurements, Size Exclusion Chromatography (SEC), viscometry, and light scattering. Differential Scanning Calorimetry (DSC) measurements are of special interest since they have shown that the molecular weight vs glass- transition temperature profiles are completely different for linear and cyclic poly(2-vinylpyridines). Collaborative efforts with several investigators will center on structure-property relationships for physical properties such as melt viscosity and electron microscopy.